Statistical Geometry of Weaves in Quantum Gravity

This project is part of an ongoing effort by a large number of
researchers to develop a quantum gravity theory, which fully
incorporates quantum principles into general relativity and
gravitation. Many approaches have been proposed over the years;
currently, the two that are widely regarded as the most promising
ones are superstring theory, which emphasizes the relation of other
forces with gravitation, and quantum geometry, which emphasizes the
need to understand the fundamental structure of space and time.
These two approaches may be related to each other and lead to
complementary views of the same theory, but at present they are being
independently pursued. This project will contribute to the quantum
geometry approach, which uses the Ashtekar variables for general
relativity and "weaves" or networks of points to replace smooth
space. The goal is to use statistical techniques and computer
simulations to study in detail (i) which combinations of such
networks are the ones we ordinarily observe as smooth space, and (ii)
how large the uncertainties or fluctuations of space are as a result.
While calculations by other researchers have given approximate,
preliminary results on the first part, the techniques that will be
used in this project are unique in enabling us to address the second
one.

From the point of view of our basic understanding of nature, the
quantum gravity program is often listed as one of the top outstanding
problems today. Both quantum theory and general relativity are
supposedly applicable to all physical phenomena, and this can only be
true if they are compatible with each other. We have reason to
believe that, once we understand their connection well, quantum
gravity will have applications in many different areas, similarly to
what happened with quantum theory almost 100 years ago. The
suggestion has been made, for example, that quantum gravity sets the
ultimate limits for information storage and computation capabilities.
For the time being, however, we need to test the theory with simpler
predictions that can be verified, such as the effect of these
fluctuating "weaves" on particles and radiation that reach us from
distant galaxies across billions of light years. Successfully
predicting effects such as this one will lead to progress in quantum
gravity, and will also give us a new tool for the analysis of
information from the most distant parts of the universe. This
project at the University of Mississippi will contribute by helping
develop a reliable working model for the fluctuating weaves that make
up space, as well as using the excellent computational facilities of
the University and helping train students in the use of computational
techniques.